AF: Small: Extending algorithms for topological notions of similarity

How would you measure the closeness of two signatures or two clay
figurines? This project explores the mathematics and computation of
measuring similarity between curves or 3-dimensional objects --
whether to compare GPS tracking data to road maps, or medical scans of internal organs to
reference models of healthy organs. While some well understood comparison methods simply
look at how close the objects are, this project aims to design more
sophisticated measures that take into account the underlying structure
(or topology) of the curves and surfaces. The PI plans to collaborate
with applications areas that use these measurement algorithms to
develop measures that best fit the areas, in addition to continuing
her work in a larger network of shape analysis and computational
topology communities, including organizing workshops focused at
mentoring junior women in these areas.

This project generalizes notions of similarity from curves to graphs, meshes, or
3-manifolds. The primary problems and techniques come from the
emerging field of computational topology, which combines algorithms
and computational geometry with mathematical foundations and tools
from the area of topology. In particular, the PI proposes to examine
fundamental topological notions of similarity between curves and
surfaces in some ambient space, based on computing optimal homotopies, homologies, or isotopies. Each
possibility offers a different notion of what it means for two things
to be equivalent in the ambient space, and each can be optimized based
on the notions of area, "height," or "width." While several initial
algorithmic results on these measures have been published, there are
many open questions that remain. In addition, recent mathematical
developments indicate many potentially tractable and feasible areas
that are yet to be explored from the algorithmic perspective. Some of
these measures are likely to be hard to compute, which is of interest
to the theoretical community, and approximation or fixed parameter
tractable algorithms may prove practical in applications areas. The
project will also include collaborations in applications areas for
these measures, in order to better evaluate their utility.